I/UCRC in Pharmaceutical Processing

9421600 Nail This project funds a meeting to have industry/university interaction to explore the potential to form an Industry/University Cooperative Research Center for Pharmaceutical Processing at Purdue University. The meeting will try to identify the possible projects of most significance to industry. It will also determine if there is sufficient interest and funding potential to establish this Center. Research areas being proposed for this potential Center include: 1) a continued focus on development of proteins, peptides, and other biotechnology-based therapeutic and diagnostic agents; 2) development of more potent therapeutic agents which are effective in ever smaller doses; 3) more sophisticated pharmaceutical dosage forms such as novel vaccines, liposomal formulations, and other complex disperse systems; 4) continued emphasis by regulatory agencies worldwide on using the best available technology to improve sterility assurance of injectable products, and 4) productivity improvement by using higher speed equipment, particularly for solid oral dosage form. The researcher are well qualified to hold an industry/university meeting to explore the potential for an I/UCRC. The possible Center has been coordinated with Dr. Fred Heineken of the Division of Bioengineering and Environmental Systems. The Program Manager recommends Purdue University be awarded $10,000 for one year for this meeting.